Computer Simulation of Electrons and Ions in Polar and Polarizable Solvents

This research focuses on the examination of the properties of condensed phases and clusters by computer simulation. It will concentrate on the electronic degrees of freedom within these systems and the algorithms necessary to simulate them. Particular emphasis will be placed on going beyond Density Functional Theory which gives only approximate ground state properties and the parallelization of the various algorithms used to study many fermions. The ultimate goal of this program is the microscopic modeling of real chemical processes at surfaces and in the bulk in a computationally efficient manner.